Coupling Digital Video-Microscopy and the BioQUEST 3P's: Fostering Undergraduate Experience with the Process of Science

This project provides funds to create computer-microscopy stations to better implement a BioQUEST PPP philosophy in the introductory biology, genetics, and microbiology courses. As a result, more hands-on experience are being introduced into the undergraduate curriculum, most of the courses are undergoing a series of changes, and most courses now have laboratories. Some courses have "research-like" experiences, and a few include a comprehensive PPP-like research experience. A student defines a question (poses a problem), conceives and executes an experiment (solves a problem), and thinks carefully about the data and its relevance to the question to convince colleagues (persuades peers). This technology also improves the instructor's ability to create open-ended, student-originated research problems.